Arithmetic of modular forms

The principal investigator and his collaborators propose to
work on aspects of Langlands' program and related topics.
A conjecture of Serre predicts that certain 2-dimensional mod p
representations of Galois groups over Q arise from modular forms,
and it further predicts the level and weight of the form.
Serre's conjecture can be viewed as a mod p version of Langlands'
correspondence, and the weight part as a manifestation of its
local behavior at p. A main focus of the proposed research concerns
a generalization of the weight part of Serre's conjecture to the
context of Hilbert modular forms and totally real fields,
where the developing formulation reveals new phenomena.
The research also addresses topics to which this has connections
and applications, including congruences between modular forms,
deformations of Galois representations, the global Langlands'
correspondence and special values of L-functions.

Langlands' program predicts a deep correspondence between objects from
algebraic geometry (solution sets of polynomial equations, such as elliptic
curves) and objects from representation theory (functions with symmetry
properties, such as modular forms). While there has been significant recent
progress (for example, the advances of Wiles and of Lafforgue), Langlands'
program remains largely conjectural. The links it provides between two
seemingly different branches of mathematics reveal properties of the integers,
which can, in turn, have applications to cryptography.